Molecular Analysis of C. elegans Sex Determination and Dosage Compensation

The aim of this ROW Career Advancement Award is to elucidate in molecular terms the basis for the male/hermaphrodite decision in a nematode by performing an extensive molecular analysis of two genes that play a central role in that decision. While some downstream sex determination genes have been cloned in other laboratories, this research represents the first molecular analysis of the genes that coordinately control both sex determination and dosage compensation. This research is of intrinsic interest and will contribute invaluable comparative perspective on the molecular mechanisms of sex determination.